Upgrade of Pulsed EPR Spectrometer for Metallobiochemistry Research

Funds are requested for the further development and upgrading of the Electron-Spin Echo Spectrometer that was constructed under NSF grant B1R-9224431 in 1993-1995. The main directions of ESE instrumentation development are: 1. Increasing the sensitivity to weak modulation by implementation of a /2 increment phase cycle with a quadrature detection scheme and by several other improvements described hereafter. 2. Extension of the frequency range of the existing ESE spectrometer down to 2 GHz, to give a unique wideband 2-18 GHz ESE spectrometer. 3. Implementation of a broadband pulsed ENDOR spectrometer. This research equipment will be employed in several different research projects including: general development of pulsed ESR spectroscopy focused on detection of the extremely weak Electron Spin-Echo Envelope Modulation (ESEEM) with special emphasis on its Pulse-Adjustable variant; investigation of the structures of model heme complexes and heme proteins; investigation of the structure of the molybdenum and heme centers of sulfite oxidase (SO) and model molybdenum (V) complexes; studies of cytochromes P450 and b5 from insects and the effects of point mutations on their heme centers; characterization of coordination compounds of large ring systems and determination of their molecular recognition properties. The wide range of biological research problems addressed in this proposal clearly demonstrates the comprehensive capabilities of this state-of-the-art spectrometer that combine broad-banded ESE and pulsed-ENDOR in a single flexible system. The diverse capabilities and high sensitivity of the proposed instrument will enable the surroundings of metal centers in biological systems to be mapped out in unprecedented detail. No presently available commercial instrument provides all of the unique features proposed here. The new generation of commercial instruments that are soon to be marketed will c ontain some of these features but will cost two to three times as much.